Proteasome Workshop (July 1-3, 1995) to be held at Colorado State University, Fort Collins, CO.

MCB-9522216 Mykles The proteasome is a multimeric, multicatalytic proteinase complex that plays a central role in intracellular proteolysis in eukaryotes. As the catalytic core of the 26S protease complex, it mediates the ATP-dependent degradation of ubiquitinylated proteins. There have been few forums for researchers to meet and discuss their work on the proteasome. Consequently, a Proteasome Workshop, organized by Donald L. Mykles and others will be held July 1-3 1995 on the campus of Colorado State University (Fort Collins CO). This is the first time that a workshop on the proteasome has been convened in the US. The preliminary program consists of one poster session and five oral session organized around the themes of structure and catalytic properties; allosteric regulators and synthetic inhibitors; expression, processing, and assembly of the 20S and 26S complexes; and physiological functions. The sessions will focus on recent developments, such asa the isolation of endgenous regulators and the 20S ATPase complex, the synthesis of cell-permeable inhibitors, the cloning of the complete set of cDNAs encoding proteasome subunits in yeast, and the indentification of "nonessential" subunits that replace other subunits and change the catalytic proteties of the complex. The proposal requests partial support for the travel costs of the 15 main speakers and eight women and/or minorites. The main speakers represent most of the laboratories making significant contributions in the field, and therefore constitute the critical promamatic core of the workshop. We recognize the importance of promoting and encouraging the particaption of under-represented induviduals, and therefore include in the proposal support for the travel and registration costs of eight women and/or minorities. %%% The Proteaome Workshop is a timely meeting which examines a non-membrane-bound organelle of the cytoplasm. The proteasome is comprised of aggregates of proteins involved in c ellular degradation of other cytoplasmic proteins. These aggregates are differentially sedimenting complexes of proteases with as yet incompletely defined catalytic properties. The meeting will address the isolation and function of the complexes and the individual proteins of which they are comprised. It is the first workshop in the US specifically addressing this new organelle. There will be five oral sessions which will include speakers from around the world, as well as poster session. The primary uses of the funding will be in defraying the travel costs of the speakers and in providing a travel and registration stipend for women and minorities. ***